Polyfolds, Fredholm Theory, and Applications

Abstract

Award: DMS-0906280
Principal Investigator: Krzysztof Wysocki

In general terms, the goal of the project is to study analytical
aspects of symplectic geometry and Hamiltonian dynamical
systems. The overall aim of the project is the development of a
general framework for studying nonlinear elliptic equations
appearing in symplectic geometry. Many of the problems in
symplectic geometry, like the Gromov-Witten theory and the
Symplectic Field Theory, are based on the study of the moduli
spaces of the first order nonlinear elliptic equations. These
muduli spaces exhibit lack of compactness, however, they have
nontrivial compactification. In the project, Wysocki jointly
with Hofer and Zehnder continues the development of a new general
Fredholm theory, which takes place in new smooth spaces called
polyfolds. This general Fredholm theory has all the properties of
the classical Fredholm theory, but is more flexible and
applicable to problems with lack of compactness. In the project,
the general Fredholm theory on polyfolds is applied to the
Gromow-Witten theory and to the Symplectic Field Theory. In
another part of the proposal, we use the theory of
pseudholomorphic curves and the theory of generating functions to
study multiplicity of closed characteristics on weakly
dynamically convex energy surfaces.

Symplectic geometry has its origin in classical mechanics. For
example, the motion of the planetary system can be described by a
system of nonlinear differential equations called Hamiltonian
systems. The flow lines of Hamiltonian systems follow very
complex patterns. Hence it is of importance to get better
understanding of Hamiltonian flows on its energy surfaces. The
development of the general Fredholm theory on polyfolds will put
the Symplectic Field Theory on solid analytical foundations. The
methods developed in this project should have applications to
larger classes of nonlinear partial differential equations of
relevance in differential geometry and physics.